Constructive Quantum Field Theory

The phase cell cluster expansion technique will be applied to the non-linear sigma model in order to develop tools for completing a rigorous mathematical treatment of four- dimensional Yang-Mills gauge theories.